Planning and Fulfilling Annual Program Meetings in the Directorate for Engineering, 2009-2010

This award provides funding in FY 2009 to Ann Becker and Associates, Inc. (ABA) to provide conference planning and support services to the Engineering Research Centers (ERC), the Industry/University Cooperative Research Centers (I/UCRC), and the Emerging Frontiers in Research and Innovation (EFRI) Programs during FY 2009 and FY 2010.